Enhancing Children's Understanding of Science Through Collaborative Creation of Animated Pictoral Models

9453091 Lewis The goal of this project is to help children understand phenomena in science by allowing them and the adults with whom they work to create and manipulate animated pictorial models. The project combines intensive study of modelling and its impact in an elementary school setting with the development of advanced computing technology, the pictorial rewrite system, that make model creation dramatically easier than it is today. The technology will support interactive classroom discussion, in which models can be created, manipulated, and compared in response to student questions and suggestions. It will and also support project work by individual students or teams working on topics of their own selection. ***